Collision of Metal Clusters and Atoms

The objective of this three-year U.S.-Yugoslav cooperative research project in theoretical and computational chemistry between Slobodan Bosanac of the Rudjer Boskovic Institute and David A. Micha of the University of Florida is to continue their investigators of the fundamental properties and structure of complex metal atom clusters. They are planning to investigate energy transfer in atom-cluster collisions and the vibronic structure of metal clusters. Dr. Micha's mathematical methods utilizing time correlation functions and quantum mechanics will be tested further in cooperation with Dr. Bosanac. This award adds an international dimension to Dr. Micha's NSF grant on theoretical methods of quantum molecular dynamics. His research has relevant applications relating to properties of materials and behavior of electronic devices. This project was approved by the U.S.-Yugoslav Joint Board on Cooperation in Science and Technology and is supported through a joint fund consisting of matching contributions from the U.S. and Yugoslav governments. The U.S. contribution is provided annually by the Department of State. No NSF funds are involved. The award, except for funds for U.S. scientist travel, is made to the Yugoslav institution. NSF's goal to advance scientific knowledge will be promoted through the joint efforts and complementary expertise of the Yugoslav and U.S. scientists.